Elevated Temperature Tribology of In-Situ Composites

9500403 Eiss Under an SGER award the tribological properties at elevated temperature will be investigated for in-situ self- reinforcing polymeric composites. Blends of isotropic thermoplastics, such as poly (ether-ether-ketone), and a thermotropic liquid crystalline polymer, HX-4000, will be elevated for their formability and their mechanical and tribological properties at elevated temperature. The results will be related to composition, micromorphology, temperature, and thermal transition point of the mixture and its components. ***